RUI: Sm-Nd Investigations within the Adirondack Mts., New York

Funds are requested to support Sm-Nd investigations of Adirondack metamorphic rocks that have been dated by U-Pb zircon methods. Attention is focused primarily on ~1300 Ma tonalites (Highlands) and alaskitic-tonalitic gneiss (Lowlands). Preliminary results suggest that the Highland gneisses have relatively young Nd-model ages (~1300-1450 Ma) indicating that they represent infusions of new crustal material into the Adirondack region at this time. The same data indicate that this is also true of ~1250 Ma tonaltiic rocks (Elzevir plutons) in the Central Metasedimentary Belt of Ontario. The chemistry of all these rocks suggests that they are arc-derived, and their presence suggests that the Adirondack-Central Metasedimentary Belt region was dominated by arc magmatism at ~1300 Ma. The present study is designed to provide a thorough Sm-Nd analysis of the Adirondack Highland tonalites and related gneisses whose age is known. In addition, ~1250 Ma Lowland granitoids will be investigated to determine whether they exhibit Nd-model ages similar to, or differing from, those of the Highlands. These results should help to clarify whether, or not, the Adirondack Highlands and Lowlands represent distinct terranes sutured together along the Carthage-Colton Mylonite Zone. In addition, the Nd-Model ages will help to ascertain whether the Lowland granitoids represent juvenile crustal additions. Data will also be collected for metasediments and gneisses related to the anorthosites in order to constrain their sources and evolution. All of these results have significant implications for the evolutionary history of the Grenville Province.